2004 Gordon Research Conference on Colloidal, Macromolecular, and Polyelectric Solutions to be held in Ventura, California February 1-6, 2004

Abstract
CTS-0338386
B. Chu, Gordon Research Conferences

The Gordon Research Conference on Colloidal, Macromolecular & Polyelectrolyte Solutions (CMPS) aims to bring together scientists and engineers from diverse backgrounds in Chemistry, Materials Research, Chemical &Transport Systems, Physics, and Biotechnology to explore forefront fundamental and applied research involving the many complexities of soft condensed matter in solution. New interests in such diverse areas of research that rely on fundamental understanding of these complex systems have emerged.

The program highlights the exciting impact of colloidal, macromolecular and polyelectrolyte solutions on nano-science/engineering. Some of the exciting aspects of this emerging field are the new analytical techniques allowing measurements of properties and processing of materials on a molecular/nano-scale with great ingenuity and precision. These experimental advances are complemented by theory and simulation to model even more complex systems with mathematical and computational tools. We have combined a number of leading investigators (including two Nobel laureates: P. G. de Gennes and S. Chu), who bring broad
experience and vision to the program, with younger scientists and engineers who will present
some of the most recent innovations in the field.

One of the key educational elements of this conference is to encourage and to financially support young scientists/engineers at the beginning of their careers, especially senior graduate students and postdoctoral students, to actively participate in the discussions and poster sessions. The program also plans to seek and to invite a number of new speakers (e.g., S. Chu from Stanford and D. Branton from Harvard, and G. Wegner from MPI, Mainz, to name a few), who have never attended this conference but have made recent breakthroughs, to present their new findings. We anticipate new collaborative efforts, student exchanges and visits shall result from such a conference.